Problems in Low-Dimensional Topology

Long plans to work on various old and new projects in geometric,
algebraic and structural aspects of low and high dimensional hyperbolic
manifolds. The problems are drawn from a variety of areas: One family of
problems comes from questions about surface groups, which are of
interest not only in low dimensional topology, but also in certain
parts of number theory. As an example, we will investigate
whether hyperbolic 3-orbifolds must contain a surface group, or
whether one can increase the homology of a hyperbolic bundle. Another
family of questions come from the study of character varieties. In
higher dimensions the proposer will consider constructions as well as
geometrical bordism questions coming from physics. Finally, the
proposer will work on projects connected to a broad range of questions
arising from the arithmetic of hyperbolic manifolds.

A space is called a 3-manifold if it is made of small chunks all of
which are ``like'' the ordinary 3-dimensional space that we live in.
This proposal directs itself towards aspects of the structural study
of the most important class of 3-manifolds, the so-called hyperbolic
3-manifolds. This class is ubiquitous in mathematics and physics, for
example although the nature of the universe has yet to be resolved,
there is at least one group who have suggested that the universe is
the Picard orbifold - a hyperbolic orbifold. The proposer has results
which restrict the sorts of manifolds which can arise in certain
physical models of the universe. He also intends to contain work on a
famous old conjecture about which sorts of two-dimensional objects can
live inside these 3-dimensional objects.